MRI: Acquisition of an Inductively Coupled Plasma-Mass Spectrometer (ICP-MS) System for Elemental Analysis and Speciation

This proposal requests funds to purchase an inductively coupled plasma-mass spectrometer (ICPMS) system for trace element and speciation analysis. The proposed system offers five key improvements over current equipment at UNM: a) improved detection limits, b) speciation of
metals by HPLC separation, c) spot analysis of solid samples through use of existing laser ablation equipment, d) analysis of biological thin sections using a CryoCell, and e) isotopic analysis. This instrument will be integral to the research and training missions at UNM in areas related to energy development, water resources, and protection of the environment, and human health. Knowledge gained from research conducted at UNM and students graduating from its academic programs will be key to permitting responsible development of energy resources as well as protection of human health and environment in the arid southwest.